FIU AMPATH Workshop to Identify Areas of Scientific Collaboration between the US and the AMPATH Service Area; August 2001

A workshop will be conducted by Florida International University (FIU) to discuss the current and future needs and activities of researchers needing a high performance network for their research projects associated with activities and projects in South and Central America, Mexico and the Caribbean. These projects will focus on the interests and benefits to US science. The participants in the works hop will be scientist from the United States and scientists from the region countries. The expected output from the workshop will be :

A report of the factual situation on the present and foreseeable future needs of scientific research projects in the region
A statement of recommendation for action concerning these needs.